SBIR Phase I: Advancing a Novel Low-voltage Electric Arc Method to Oxidize Organic Material in Contaminated Water

This Small Business Innovation Research (SBIR) Phase I project from Symbios Technologies LLC advances a
novel plasma reactor method to oxidize organic matter in untreated water. This method has further potential to
destroy harmful substances such as pesticides, pathogens, and some inorganics. A provisional patent covering this
technology has been filed with the U.S. Patent office. In earlier research, a proof-of-concept batch apparatus
demonstrated that this reactor could destroy selected organic compounds and pathogens. However, this early
version could not be economically scaled up nor run in a continuous mode. This Phase I project will build a new
apparatus design at a laboratory scale, capable of treating water continuously. Studies will then be conducted to
verify the effectiveness of the new reactor design, and to investigate the mechanisms and kinetics of the
degradation of a selected organic compound.
The broader/commercial impacts of this research are: an economical and effective method to treat raw
water, input water, industrial wastewater, and contaminated potable water; and potential portability to desired
locations. There are several ongoing incidences of waterborne diseases in many parts of the world and economical
options for on-site treatment are limited. Our analytical projections indicate that it would be feasible to treat large
quantities of untreated water economically on a commercial scale using a portable system. Furthermore, this
apparatus would be compatible with renewable energy sources and with extended applications to remote sites, such
as military bases and disaster relief operations.